Level of Detail Selection Using a Perceptual Error Metric

Level of Detail Selection Using a Perceptual Error Metric

This grant will investigate the use of visual difference metrics in
level of detail calculations. The research will make it possible to
evaluate the visual detectability of changes to an object
representation in addition to the geometric difference that such
modifications make to the object's surface definition. Factors that
will be taken into account using a single visual metric include
eyepoint position and surface texture. The context in which the
object is placed, including the effect of lighting, will also be
evaluated. The research will explore the impact that each dimension
has on the final level of detail and will derive an efficient visual
difference metric that can be used in conjunction with existing
geometric measures.